Concatenated Coding for the Atmospheric Optical Communication Channel

The atmospheric channel for optical communication is hostile due to high attenuation during bad weather conditions and due to fading over long atmospheric paths. One way to improve the reliability and usefulness of these types of systems is through the use of coding to reduce the error of the decoder bits at the receiver. Based upon the use of interleaving of simple codes, the problem of long fades which cause a large number of errors spanning thousands of consecutive received bits has been investigated. To determine what improvements in system performance can be obtained with realistic interleaving, a series of experiments were carried out. The results of these measurements indicated that substantial interleaving would be needed to obtain acceptably low error probability performance. It is the objective of this research to employ a concatenated coding scheme to obtain satisfactory performance with a much smaller amount of interleaving.